Native American Undergraduate Multiresource Program

Our program supports Native American Students who declare themselves forestry majors at Northern Arizona University. Enrichment activities support retention. We will address family and community participation, cultural dissonance, and the cause of low student self-esteem. Central to the effort will be a full-time Native American professional counselor/advisor. The program will fund visits and communication between family members and School of Forestry faculty and students. Native American professionals will become involved as role model/mentors and advisors. Inclusion of Native American professionals will become involvement as role model/mentors and advisors. Inclusion of Native American values, tradition, and knowledge in the undergraduate curriculum will be a priority. The first year student research program will focus on the content of the junior year curriculum; a faculty member with primary responsibility for that curriculum will supervise the summer research work, which will be conducted by the Native Americans who have completed the junior year course work. In future years, the research agenda will continue to relate to the curriculum, with additional effort motivated by problems defined in consultation with tribal forestry departments. Our measures of success are increased in (1) graduation rates of Native Americans and (2) numbers of Native Americans pursuing advanced degrees in science.